Research Experiences for Undergraduates in Chemistry at the University of Notre Dame

This project, funded by the Chemistry Division, supports Dr. Marya Lieberman and other members of the Chemistry and Engineering Departments at Notre Dame University in establishing and conducting a new Research Experiences for Undergraduates (REU) site in chemistry. For the period 2000-2002, 36 undergraduate students will spend 8-10 weeks each conducting summer research in synthesizing, characterizing and modeling materials to provide insight at the atomic level into their properties. In addition to work on individual research problems, participants will hear weekly seminars by the faculty and attend a series of mini courses on topics related to nano(atomic)scale phenomena such as aerosol chemistry, X-ray photoelectron spectroscopy and electron microscopy. At the conclusion of the summer program each participant will present her/his findings at a research symposium. Students will achieve a realistic understanding of the demands of independent chemical research and gain self confidence in pursuing such studies.